US-Netherlands Cooperative Research on Subsurface Flow and Transport Simulation

This proposal on "Subsurface Flow and Transport Simulation" between Dr. William G. Gray of the University of Notre Dame and Dr. Anton Leijnse of the National Institute of Public Health and Environmental Protection, Bilthoven, The Netherlands, is approved by NSF and the U.S.- Netherlands Cooperative Science Program. This research will improve our ability to describe the flow of water in the subsurface and the movement of chemicals in that water using numerical simulation procedures. The flow is difficult to describe accurately when the subsurface geologic formation is inhomogeneous or when the concentration of contaminants is so high that it affects the fluid density. The computational techniques to be implemented here will improve this description by automatically refining the computational grid in the vicinity of these complex regions. The work will be done cooperatively with basic theory and algorithms being the primary responsibility of researchers at the University of Notre Dame and testing and implementation for field situations performed by researchers at the Netherlands Department of Public Health and Environmental Protection.